The Effect of Ras Oncogenes on Muscle Development

Dr. Taparowsky's long term goal is to understand the biochemical pathways through which programs of cell proliferation, differentiation and transformation are regulated during development. As a first step toward this goal, she has investigated how the expression of an activated ras oncogene disrupts the differentiation of cultured myoblasts and have correlated the inability of ras cells to differentiate with the down-regulation of the myogenic regulatory gene, MyoD1. Interestingly, she has demonstrated that other inhibitors of myogenesis in culture, such as FGF and TGF-beta, also negatively affect transcription of the MyoD1 gene. To investigate the intracellular mechanisms that mediate the myogenic program, she proposes to examine if changes in phosphatidylinositol metabolism or protein kinase C activity are associated with ras expression or TGF-beta or FGF treatment in myoblasts. In addition, she has cloned the rat MyoD1 gene and propose to use this gene to map the cis-acting elements that regulate the transcription of the MyoD1 gene in normal and differentiation defective myoblasts. %%% The development of embryonic cells into distinct cell types, such as muscle cells, requires an as yet not well understood balance between cell division and differentiation. This project investigates at the molecular level the interaction of a gene involved in transformation to a state characterized by a high rate of cell division and a gene that targets a cell to differentiate into muscle cells.